PFF: Signal Reconstruction and Applications to Communications, Ultrasound Image Processing, and Earthquake Engineering

The goal of the project is twofold: research in the area of signal reconstruction, and teaching in signal processing, both components emphasizing on the interdisciplinary aspect of signal processing. The main thrust of the research is the reconstruction of a signal with unknown statistical description that propagates through a system with unknown characteristics, solely from the system's output (blind deconvolution). Higher Order Statistics are powerful mathematical tools to be employed in this problem, capable of revealing a wealth of information about the signal/process (e.g., phase, presence of nonlinearities), and at the same time suppressing noise. The theoretical developments of this work will be applied in the areas of digital communications, medical diagnostics and earthquake engineering, and are expected to bring new knowledge to these fields. In the area of teaching the goal is to develop and maintain a new systems curriculum, highlighting principles that unite different engineering disciplines. Towards this goal, a state-of-the-art multimedia signal processing laboratory will be developed, and new courses will be designed.